Weak and Electromagnetic Radiative Corrections in Atomic Physics

This work aims at a unified treatment of radiative corrections in neutral atoms, using both perturbative approaches (exploiting nonrelativistic QED) and a full nonperturbative treatment of the electron propagator. Studies will focus on the two loop Lamb shift, but will also address radiative binding corrections in cesium (relevant both for PNC and for hyperfine splitting) and energy calculations in helium and helium-like ions.